Surface and Gas-Phase Mechanisms in the Chemical Vapor Deposition of Diamond

In this project, supported jointly by the Analytical and Surface Chemistry Program of the Chemistry Division and the Metals, Ceramics and Electronic Materials Program of the Division of Materials Research, the surface and gas-phase mechanisms of diamond thin film growth will be investigated. Emphasis is placed on studies of the halogen catalyzed CVD growth of diamond, and surface science studies combined with molecular modelling and growth kinetic studies will provide a detailed understanding of the mechanism of diamond thin film growth. Optical interferometry and atomic force microscopy will be used to monitor growth rate and the effects of atomic scale morphology on the quality of the diamond thin films studied here. %%% A detailed understanding of the mechanism of halogen assisted chemical vapor deposition of diamond thin films will help to optimize the growth conditions and efficiency of the preparation of these thin films. Diamond thin films promise to have a wide ranging technological impact as electronic and optical materials, and a detailed understanding of the growth process is essential to the development of this important technology.